Laminations, Foliations and Flows in 3-Manifolds

Abstract.

"Laminations, foliations and flows in 3-manifolds"

Essential laminations and Reebless foliations are
a basic and fundamental tool in the study of 3-manifolds.
Their use yields deep results concerning 3-manifold topology
and they are also related to the geometrization conjecture
for 3-manifolds. One goal is to analyse the existence
question for laminations in 3-manifolds, particulary for
hyperbolic 3-manifolds. The PI has recently shown there
are infinitely many hyperbolic 3-manifolds which do not
admit essential laminations. A natural question is how
common are essential laminations. The project will
investigate Dehn surgery on torus bundles over the circle
and general surface bundles and also special types of
laminations/foliations. The project will also consider
more general structures, such as loosesse laminations and
which properties they have. Another part of the project is
to understand the geometric behavior of foliations and
transverse pseudo-Anosov flows in hyperbolic 3-manifolds
- which is a very large class of manifolds. The focus will
be on the large scale geometric behavior in the universal
cover, which is fundamental for such manifolds. An important
question is whether such flows are quasigeodesic - this is
true in certain cases by previous work of the PI and Lee
Mosher. One goal is to use the quasigeodesic property for
the flows to derive information about the asymptotic behavior
of the foliation transverse to the flow. This is specially
promising in the case of general finite depth foliations.
Another goal is to connect these properties with the universal
circle of the foliation - establishing a link between the global
structure of the foliation and the global geometry of the
universal cover. Another project is to study properties of
limit sets of leaves of foliations in hyperbolic manifolds.

The project aims to better understand 3-manifolds.
3-manifolds are widely used in the sciences: for example
knots and their properties are very relevant to DNA
research. 3-manifolds are also used to get mappings of the
brain and in other visualization techniques. Understanding
3-manifolds can lead to progres in these other areas.
The project focuses on laminations and foliations, which
are an essential and currently extremely dynamic area in
low dimensional topology. The proposed projects will have
an effect on some main research directions in the area.
One important goal is to attract students and postdoctoral
researchers in this exciting area.